SGER: The Role of Nonlinear Dynamics and Chaos on Predictability of Models

The application of non-traditional mathematical methods to the analysis of lagrangian drifters will lead to an evaluation of the extent of chaotic motions in the ocean. This will then place bounds on the predictability in ocean models